Relative Stabilities of Organic Compounds in Geochemical Processes

The primary goals of this research are an enhanced understanding of how organic compounds respond to aqueous alteration and the relation of this response to the observed distribution of organic compounds in petroleum, oil-field brines, low-grade metamorphic rocks and hydrothermal fluids. These objectives will be met by computing the relative stabilities of organic compounds in coexisting gas, aqueous, petroleum and disseminated phases, and using these calculations to help interpret field, analytical and experimental observations. Relative stabilities will be evaluated from thermodynamic data as functions of temperature, pressure, fugacities of various gases (O2, H2, CO2, CH4, NH3, N2, H2O, etc.), and activities of organic and inorganic aqueous species. Where experimental data are not available, existing estimation methods will be used. In the case of aqueous species, these methods will be enhanced to account for a variety of organic compounds (branched and cycloalkanes, polycyclic aromatics, dicarboxylic acids, sulfur-bearing compounds, etc.) which have not yet received attention, and for which high temperature/pressure data are generally not available. The geologic focus of this research will be conditions at which aqueous solutions interact with organic compounds in petroleum reservoirs, sedimentary rocks, hydrothermal systems and metamorphic terranes. This research requires an interdisciplinary approach combining theoretical equations, thermodynamics and kinetic data, computer techniques and field and laboratory observations to achieve these goals.